Structural Geology and Tectonics Forum at Arizona State University, Tempe, AZ, January 4-9, 2018

This award will support the fifth biannual Structural Geology and Tectonics Forum, which will be held in January 2018 at Arizona State University in Tempe, Arizona. The forum will bring together specialists in structural geology and tectonics for oral and poster presentations, field trips, and short courses. The Structural Geology and Tectonics Program provides the framework for the structural geology and tectonics community to communicate, develop, and advance teaching and research among educators and investigators. These forums play a key role in identifying key pedagogical advances and methods applied to structural geology and tectonics, important science questions in structural geology and tectonics, while initiating collaborative relationships to address these questions, and early career geoscientists while supporting them. The meeting will include three days of presentations that will include technical sessions that will include topics such as the evolution of crustal shear zones, new developments in the tectonic evolution of western North America, and effective teaching methods for structural geology and tectonics. Each session will highlight an important area of current research and/or education, will be anchored by a distinguished keynote speaker, and will showcase relevance of work on the topic. Poster sessions with abundant time for full participant interaction will accompany each session. The forum will be organized to maximize the exchange of ideas between participants in open discussions. Sessions will provide ample opportunity to ask questions of individual presenters, assess the current state of our knowledge, and consider productive areas for future research. In addition to the formal meeting, there will be field trips to examine the geology of selected areas near Tempe, as well as an optional meeting to examine the geology of the southern San Andreas Fault of California. Short course topics will include use of high resolution topography and Earth observation, digital applications to field geology, geostatistics applied to geological mapping and fieldwork, experimental rock deformation, and structural geology laboratory exercises and software.

The Structural Geology and Tectonics Forum is designed to facilitate community building and personal interaction within different segments of the structural geology community. It will bring together faculty from research universities, liberal arts colleges, community and two-year colleges, and minority-serving institutions. Importantly, there will be group discussions on critical developments in structural geology and tectonics, and what future research priorities should be. This community building effort will help create a stronger, more vibrant group of scientists and help introduce graduate students and advanced undergraduates to the structural geology and tectonics disciplines. The setting will be particularly useful for graduate students, who will be able to use the venue and informal nature of the forum to find out what research is taking place at other institutions, meet a wide range of faculty, and develop useful contacts which will be of great value to their future careers. Students will be able to present their own work in a friendly environment where they can obtain thoughtful and useful feedback, as well as providing opportunity to build new scientific collaborations. Abstracts, field guides, and short course notes will be disseminated through a dedicated website that will be publicly accessible. Continued support for the Structural Geology and Tectonics Forum contribute to the long-term health, vitality, and infrastructure of the Earth Science community. The Structural Geology and Tectonics Forum benefits society and advances desired societal outcomes by its emphasis on STEM (science, technology, engineering and math) education and educator development at a variety of levels, by contributing to the training of the next generation of scientists, by contributing to the broadening of underrepresented groups in STEM, and by contributing to the advancement of scientific literacy of the public. These activities contribute to the increased economic and scientific competitiveness of the United States.